Molecular, Morphological, and Vocal Diversity in Neotropical Antbirds

9974104
Hackett
This project will focus on gathering molecular, vocal, and morphological data for three co-distributed and ecologically distinct Neotropical birds from sites throughout Amazonia. With these data sets, we will address questions about genetic structure, its relationship to vocal, morphological and behavioral evolution, its implications for Amazonian biogeography and conservation, and neutral evolution of mitochondrial DNA. The general relevance of this research lies in the comparative nature of the data to be gathered. If we hope to create strong testable hypotheses about the processes that have led to diversification of birds or the tropics in general, evolutionary information is essential. These will be among the first large data sets for Amazonian organisms. As a result, the data have immediate relevance to general questions on Amazonian biogeography. In addition, our multi-taxon approach will provide a baseline from which we can study the historical consequences of ecological specialization in tropical organisms.